Examination of Sill Flow, Mixing and Water Mass Modification in a Generalized Hybrid-Coordinate Ocean Model

0099059/Schopf

This project focuses on the development and testing of a numerical
ocean general circulation model, including its application to dense
overflows and the deep circulation of the ocean. If successful, the
primary outcomes will be an enhancement of infrastructure, in the form
of better ocean modeling capability, and better insight into the
dynamics of dense overflows. The ocean model at the heart of the
project is the Poseidon model which uses a generalized vertical
coordinate. The model development will center on improving the
representation of ocean mixing, using existing observational data and
theoretical results on dense overflows, such as the Mediterranean
outflow, to define test problems and calibrate the results. The
project will also explore the effectiveness of several other
algorithmic refinements.